Development of Standards for Electron Microprobe Analysis of Oxygen

This award will support the development of comparative standard samples for the quantitative analysis of the element oxygen with the microanalytical electron probe technique. Although oxygen is the most abundant element on earth, its concentration in minerals and synthetic materials is usually inferred by making assumptions about charge balance and stoichiometry. The capability to directly analyze oxygen concentration on a microanalytical scale will constitute an important analytical advance in mineralogy and materials science.